CONCUR '95 - Sixth International Conference on Concurrency Theory; University of Pennsylvania; Philadelphia, PA; August 21-24, 1995

This award supported travel expenses for student participants in CONCUR '95 -- the Sixth International Conference on Concurrency Theory, held August 21-24, 1995, in Philadelphia on the campus of the University of Pennsylvania. The purpose of CONCUR '95 was to bring together researchers, developers, and students from academia, industry, and government so that the science of concurrency theories and the technology of their applications can be advanced. The conference spans all areas of semantics, models, logics, and verification techniques for concurrent systems. Particular topics include, but are not limited to, process algebras, Petri nets, true concurrency, shared-memory and message-passing formalisms, operational and denotational semantics, programming language semantics, concurrent logic and constraint programming, fairness, temporal logics, compositional analysis techniques, model checking, verification tools, and applications. The primary goal of holding CONCUR '95 in the U.S. was to increase participation by American researchers in the area, and to encourage interaction among the various schools, both European and American, that have worked towards formal approaches to concurrency.